Using ISETL and CAL to Teach Mathematics

Two one week workshops are being held for undergraduate mathematics faculty to use and develop computer software with symbolic representation of mathematical concepts in core mathematics courses. The first workshop using ISETL (public domain software) is aimed at the typical mathematician who would like to incorporate the use of computer software in teaching discrete mathematics. It is also providing the participant the opportunity to develop course material useful in abstract algebra, discrete structures, calculus, combinatorics, and number theory. The second workshop CAL is enabling faculty to create "interactive mathematical lessons" which can be used by students to explore mathematical ideas. The scripts direct student exploration of topics ranging from high school algebra to linear algebra, multivariable calculus, and differential equations. The participant's institutions are contributing the costs of their travel to the workshop.